NSF INCLUDES DDLP: BEST BET: Broadening Experiences in Scientific Training - Beginning Enhancement Track

The Broadening Experience for Scientific Training: Beginning Enhancement Track ("BEST-BET"), an NSF INCLUDES Design and Development Launch Pilot project, draws upon the expertise of five research-intensive institutions that have developed innovative programing in career and professional development for doctoral and postdoctoral trainees in biomedical research. The goal of the project is to expand the scope and leverage the work so as to engage students earlier in their career exploration. Specifically, the project will target undergraduates who may not be aware of the multitude of career options available to them. These include opportunities in academia, the biotechnology and pharmaceutical industries, science communication, science policy, and technology transfer/patent law. The effort will focus on undergraduates who come from populations generally underrepresented in STEM fields, including but not limited to ethnically, racially and socioeconomically underserved communities. The grant will support educational opportunities for students at minority-serving institutions and will assess the impact of providing new opportunities to this community. The critical contributions of a diverse and inclusive community are essential to progress in all STEM fields. By promoting diversity in education, this project aims to engage undergraduate students at a point in their professional development that could enable participation in a wide range of workforce opportunities so as to advance the progress of science and national health.

The focus of BEST BET will be to use a collective impact framework to connect the "BEST network" of institutions to partners engaged in undergraduate education of students from underrepresented communities who are interested in the life sciences. The underlying premise is that career exploration focused on opportunities that go beyond physician training will enable engagement of this community of learners in the life science workforce beyond the pre-med track and keep them engaged in degree completion. Multiple strategies will be used to attain the goals of BEST BET. They are organized in the context of two major objectives roughly divided into the scope of planned activities. The first objective focuses on "career exploration" and offers strategies to assist partner institutions to build career and skill development capacities. The second is grounded in an enhanced experience of BEST site visits whereby undergraduates will have the opportunity to envision life as a graduate student and beyond. These strategies will likely enhance persistence to complete the baccalaureate degree and move onto doctoral programs.